SSC: University of South Carolina - Summer Science Camp

9350559 Durig This project conducts a four-week residential camp for forty-four Black eighth- and ninth grade students from rural areas. The camp is held on the Columbia campus and on Pritchard's Island. The project focuses on instruction in life-, earth-space, and physical sciences and includes mentoring by faculty and graduate students as well as academic-year follow-up. It is consistent with statewide efforts to restructure science and mathematics education at the K-12 levels and is located in the same region as the undergraduate level Alliance for Minority Participation (AMP) at the University of South Carolina.